Research Initiation: Detailed Three-Dimensional Simulation of Steel Frame Subassemblages

Improvements in the static and aseismic design of steel-framed structures are hindered by the inability to simulate adequately their three-dimensional nonlinear response to monotonic, nonproportional, and cyclic loadings. This research involves the development of advanced finite element and computer graphics capabilities for the analysis of steel frame subassemblies, and the application of these research tools to achieve a better understanding of the full-range behavior of structural steel frames. The effects of initial imperfections and residual stresses, spread of plasticity, the detailed constitutive response of structural steel to nonproportional and cyclic straining, inelastic nonuniform torsion and torsional- flexural coupling, cross-section distortion, joint deformations, and the interaction of local and overall instabilities will each be modeled and studied. Computer graphics techniques will be developed for monitoring and control of nonlinear simulations and for animation and visualization of the complex three-dimensional phenomena modeled by the planning and interpretation of experimental tests, the extension of experimental knowledge to a wide range of geometries and loadings, and the development and calibration of approximate models for non-linear analysis of large frame structures.